Conference: Early Career Researcher Support for the 2026 Organic Geochemistry Gordon Research Conference and Seminar

The 2026 Organic Geochemistry Gordon Research Conference and Seminar strengthens the national research enterprise and cultivates the next generation of geoscientists. The Seminar is a 1.5-day forum where energy and mineral resource, environmental, and technological challenges of the 21st century are addressed through a program designed for professional development, networking, and community-building for early-career researchers. The Conference immediately follows the Seminar and brings together researchers to discuss scientific themes including energy security and dominance, critical mineral resources, advanced analytical technologies, workforce development, and scientific innovation to support artificial intelligence (AI)-driven applications.

The 2026 Organic Geochemistry Gordon Research Conference and Seminar provide platforms for discussing new discoveries and technological approaches to biosynthesis, characterization, cycling, transformation, and preservation of organic matter on Earth. Scientific topics include advanced biomarker analysis, compound-specific stable isotopes, multi-omics methods, big data analytics, numerical modeling, quantum computing and sensing, and artificial intelligence. The program allows the exploration these topics over a broad range of spatial and temporal scales and through the lenses of state-of-the-art analytical and computational tools with applications in biotechnology. The conference serves as a catalytic hub for collaboration across universities, national laboratories, federal agencies, and industry, with a focus on training of early career researchers.